Design and Fabrication of Neural Networks for Signal Processing Recognition

In prior work, the P.I. has developed and tested a detailed quantitative model of how speech information is processed in the cochlea of mammals. He has studied how this information, after processing, is allocated with speech sounds, as recognized by humans. In this project, the P.I. will go on to apply various learning algorithms to processed human speech, so as to demonstrate the value of this processing in speech recognition applications. Innovative learning algorithms exploiting the true series nature of speed data will be explored, along with more clinical biologically-motivated learning rules.